Fermilab, 1965-1990: A Case Study in the Emergence of Big Science

Dr. Lillian Hoddeson and Dr. Catherine Westfall are undertaking a pilot study to explore the workings of "big science" in American physics through a critical historical examination of the last 25 years of Fermi National Accelerator Laboratory (Fermilab), the base of the world's highest energy particle accelerator. Their ultimate hope is to examine the effects of institutions like Fermilab on scientific research of increased size, scope, and cost of facilities and experiments; the changes in experimental research resulting from large working teams and long time-scales; the influence of politics and government control, "user" orientation of facilities, geographical concentration and computerization. Under this pilot study, they will produce an initial overall analysis of the major issues in the full-length project and three specific studies: (1) on the construction and early research program at Fermilab; (2) on the impact of the SSC; and (3) on the history of the Collider-Detector Facility (CDF) "experiment." Dr. Hoddeson will focus on technical aspects of the designing of large accelerators and detectors, including the 400 GeV syncrotron, the 1000 GeV Tevatron, the CDF detector, and the SSC, as well as the experimental program after 1980 and the impact on Fermilab and high energy physics of the SSC. Dr. Westfall will deal more with the political and technical origins of Fermilab, construction of the 400 GeV machine, the early experimental program (1971-80) and the establishment of the SSC. This study should greatly enhance our understanding of the operation and impact of big science in physics today.